REU Site: Summer Undergraduate Program in Engineering at Berkeley

This project will bring seven undergraduate students to the University of California, Berkeley for an eight week period in each of the summers of 1993, 1994, and 1995. The research projects will focus on microelectronics, communications, and computer science. The participants will have completed their junior year, and will all be women, or members of an underrepresented ethnic minority. In addition to working one on one with a faculty member in the Department of Electrical Engineering and Computer Science, each participant will be assigned to a graduate student co-mentor of the same gender or ethnicity.